CAREER:The Evaluation and Design of a Scalable, High Performance and Energy Efficient Microprocessor Architecture

Speculative execution has been widely used in computer architecture
research in the pursuit of higher levels of instruction level
parallelism. However, recent studies have shown that this technique
can significantly impact the scalability of the processor pipeline.
This research will investigate a number of speculative techniques
with respect to performance, scalability, energy efficiency, area
costs, and complexity; eventually leading to a novel, scalable
architecture to provide high performance at future technology sizes.
Such an architecture will minimize the amount of logic on the
critical timing path of the processor, relying on small speculative
structures to reduce the cycle time of the processor. Off the
critical path, a variety of larger speculative structures provide a
backing store to the critical path.

Some of the techniques to be examined in this research include
branch prediction, value and address prediction, data prefetching,
early register release and late register allocation, and multiple
clustered functional units. Many of these techniques require large
and often complex predictors that can impact the cycle time and power
density of a processor. This research investigates some techniques
to reduce the access time and size of these structures, while still
providing the accuracy to avoid costly speculative recovery
procedures.